Equipment: MRI: Track I: Acquisition of a High Resolution-Inductively Coupled Plasma-Mass Spectrometer.

This award supports the purchase of a high resolution inductively coupled plasma mass spectrometer (HR-ICP-MS). The instrument will generate environmental chemistry data that advances understanding of Alaskan ecosystems and resources, and it will improve research infrastructure and build the STEM workforce. Access to this new instrumentation will positively impact early career faculty, postdoctoral researchers, graduate and undergraduate students.

The acquired HR-ICP-MS will be used for precise determination of isotope and elemental ratios at low concentration in environmental or laboratory samples. This acquisition will enable new science in aquaculture, paleoceanography, marine carbon sequestration and ocean particle fluxes, geochronology, environmental toxins, critical mineral extraction, and other environmental applications in polar and global environments. It would enable Alaskan researchers to position themselves at the forefront of sustainable resource extraction, marine carbon capture, and the blue economy.